Geoscience Graduate Research Grants

This award partially supports the Geosciences Graduate Research Grants at the Geological Society of America (GSA). The primary role of this program is to provide partial support of Master's and Doctoral thesis research in the geological sciences for graduate students at universities in the United States, Canada, Mexico and Central America. Grants are intended to defer field and laboratory expenses related to the students' projects, not to fund the complete project. Students may receive a grant once at the Master's level and once at the Ph.D. level. Applications are evaluated on the basis of the scientific merits of the problems, the capability of the investigator, and reasonableness of the budget. Eligibility is restricted to GSA members. Grants are awarded only to individuals; institutions, societies, and universities are not eligible. GSA strongly encourages women, members of under-represented groups in Geosciences, and persons with disabilities to participate fully in this grants program.